Biological Control of Land Surface Atmosphere Exchange: An Ecosystem Approach

Biological control of water, carbon dioxide and energy exchange at the land surface is an important factor modifying climate, and climate change; its study requires consideration of biophysical processes over time and space scales of ecosystem change. Simple biophysical models have been employed to address land surface/climate interactions, but controls over mass and energy fluxes by ecosystem processes such as nutrient availability or herbivory have not been considered. It is hypothesized that biotic controls such as nutrients and herbivory significantly affect vegetation-mediated mass and energy fluxes, and that these biological effects are largest when fluxes are largest. Preliminary landscape-scale process studies suggest that leaf nitrogen and nitrogen use efficiency are key parameters regulating exchange, and have high spatial amplitude at both proposed sites (short- and tall- grasslands). It is proposed to analyze ecosystem controls over mass and energy fluxes and develop a model designed for use at landscape to regional scales. The model explicitly considers variation in characteristic time rates of change of biophysical and ecosystem processes and may be driven using remotely-sensed inputs. Process studies will develop relationships among plant and ecosystem variables and spectral features. This project will evaluate GIS and remote sensing-based techniques for spatial extrapolation using the model, including applications of new high spectral resolution sensors. Several approaches for choosing spatial resolution for spatial simulation will be compared and evaluated relative to measured regional carbon dioxide and water fluxes at the Konza and Central Plains LTER sites. The immediate phase of this project will address (1) the ability of coupled models to simulate seasonal fluxes at selected sites and (2) the ability of field spectrometers to detect plant canopy characteristics necessary to the simulations. The project team is excellent. Institutional accommodations and facilities are quite good. The research should produce results important to resolution of questions on grazing land production and the effects of possible climate change. The Ecosystem Studies Program recommends that an award be made.